MRI: Gas Chromatograph-Mass Spectrometer for Marine Chemistry and Lipid Biogeochemistry Research at Hawaii Pacific University

With this award from the Major Research Instrumentation program (MRI), F. David Horgen and colleagues Brian J. Bozlee and Jiasong Fang from the Hawaii Pacific University will acquire a gas chromatograph with a mass spectrometer detector (GC-MS). The instrumentation is to be used by at least four faculty members, 13 postdoctoral research associates, and there will be training for undergraduate and M.S. students. The GC-MS is proposed to be used in identifying biomarkers, nanomaterials, bioactive marine-derived compounds, biosynthesized peptides, and in quantitation of dimethyl sulfide in sea water, and nitrogen incorporation studies in aquaculture systems.

Gas chromatography with mass spectrometric detection (GC/MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. The results from studies using the requested spectrometer will have an impact on organic/organometallic chemistry, chemical biology, natural product chemistry, and materials chemistry.